Characterization of Factors in the Neural Tube That Induce Skeletal Muscle Determination

9317533 Lassar The regulation of cell type determination is a crucial aspect of early embryogenesis in all multicellular organisms. A variety of approaches taken by several laboratories has led to the identification of a family of structurally related skeletal muscle transcriptional regulators (the myogenic HLH proteins) which play a crucial role in skeletal muscle determination and differentiation. The myogenic HLH regulators can activate muscle gene expression in various cellular contexts implying that no tissue specific factors other than this family of regulatory proteins are needed to initiate muscle differentiation in the mesodermal and non-mesodermal cells tested. During vertebrate development skeletal muscle precursors are first observed in the somite, an axial structure which gives rise to dermis, skeletal muscle, cartilage and bone. The earliest expression of the myogenic bHLH regulators occurs in the myotomal cells of the somite, which give rise to all skeletal muscle in vertebrates. The expression of the myogenic bHLH genes during cell type specification of skeletal muscle suggests that activation of these regulators may in fact commit cells to the skeletal muscle cell lineage. There are a number of unanswered questions regarding specification of somitic cells into the muscle lineage: 1) When are the somitic cells giving rise to the myogenic lineage first specified to this fate, 2) what triggers the final commitment and 3) which signals are involved in this process? Experiments have demonstrated that early somite cells of chicken or mouse, when explanted in tissue culture, are not able to differentiate into muscle unless they are co-cultured with either neural tube or overlying epithelial cells. Thus neural tube (and some types of epithelia) are inducing the pluripotent early somite cells to differentiate into muscle. Dr. Lassar has recently demonstrated that neural tube dependent induction of somitic skeletal muscle differentiation is ac companied by activation of the myogenic HLH regulators. Thus a factor(s) from the neural tube induces skeletal muscle differentiation in somitic cells via activation of the myogenic HLH regulatory family. By employing an in vitro induction assay, he will attempt to characterize and molecularly clone the neural factor(s) responsible for inducing chick and /or mouse early somite cells to enter the skeletal muscle cell lineage. The goal of this work is to understand both the inductive events as well as eventually identify the intracellular mediators necessary for activation of the myogenic bHLH regulators. ***